Mathematics Using Mathematica

A computer laboratory is being developed which will integrate symbolic, numerical, and graphical tools into the elementary calculus course in the form of a laboratory-workshop setting. This approach enables students to explore the fundamental concepts and applications of calculus in an atmosphere conducive to peer collaboration. In addition, the upper- division mathematics modeling course is being restructured to include Mathematica as a tool for problem solving.